U.S.-China Cooperative Research: Support of CSCPRC Science and Engineering Programs

This award is for support of the science and engineering activities of the Committee on Scholarly Communications with the People's Republic of China (CSCPRC). The CSCPRC is sponsored jointly by the American Council of Learned Societies, the Social Science Research Council, and the National Academy of Sciences. This award will support ongoing information services of the CSCPRC, including library and search capabilities, database development and maintenance, and information gathering aand dissemination. Other activities to be supported include publication of China Exchange News, program planning and evaluation, and specific studies.